An Undergraduate Research Program in Gravitational-Wave Astrophysics

This grant will support the continuation of an REU Site which was established at Caltech in 1997 under the aegis of the Laser Interferometric Gravitational-Wave Observatory (LIGO) Project. The REU Site activities will focus on a ten- week summer research program at Caltech, involving ten undergraduate students from around the U.S. Research projects will involve mainly the physics and engineering of the LIGO initial and advanced detectors, data analysis techniques and software, and theoretical studies of astrophysical gravitational-wave sources. Individual LIGO scientists and engineers will serve as student mentors, while the overall program environment and administration will be the responsibility of the PI. Active recruiting efforts will be aimed at a number of target institutions in order to attract a diverse group of talented and motivated students.